Teaching Modern Statistical Management Tools and Concepts in Undergraduate Statistics Courses

A one-week workshop is being presented to 50 college and university faculty who teach statistics to undergraduates majoring in engineering, mathematics, statistics, and business administration. The workshop is presenting the management concepts and statistical tools that are used by leading companies to achieve their world-wide competitive position in quality and productivity. Through the use of well-tested case studies, participants are receiving "hands-on" experience in addressing and solving real-world problems. Course participants will be able to bring to their own classroom teaching the tools and concepts needed by our next generation of engineers and managers, if the U.S. is be competitive both here and abroad. Participant's home institutions are cost sharing by the contribution of participant travel to the workshop.